Investigation of Temporal Changes in Fluid Compositions in the Cascadia Accretionary Wedge from Microanalysis of Sequentially-Grown Authigenic Carbonates

963330 Sample The study will attempt to characterize the temporal and spatial evolution of sources of pore fluids in SOP sites 891 and 892 on the Cascadia accretionary prism. Various mass spectrometric techniques will be used to characterize the chemical and isotopic composition of authigenic carbonates on microdrilled samples across large vein and vug linings. The samples will be dated radiometrically through Th230 method.